A Summer Research Experience for Science Teachers

9731321 Koke Southwest Texas State University provides a 60 month Teacher and Student Development Through Research Experience project. The project consists of two components. The first component provides research opportunities for up to 30 middle and high school teachers each year in the areas of biology, chemistry, physics, mathematics, and technology. The teachers work with faculty scientists/mentors on current research projects during an 8-9 week summer experience and are supported to transfer elements of the research into classroom experiences for their students. The second component engages 18 high school students and up to 8 teachers each summer in courses and study leading to mathematics research. Teachers also study learning theory and research topics in order to develop modules incorporating mathematics research topics into their instruction. During the academic year student/teacher teams develop research projects and present them at a spring conference. Participants communicate electronically with each other and a university faculty mentor. An important element of the project is the phased shift of resources from NSF to institutional support over the project life.